The Chronology and Ecology of Postglacial Colonization of the Americas

Human colonization of the Americas has been an important and controversial issue. This is particularly true with regard to the Clovis expansion shortly before 11,000 years ago. New dates suggest that one large mammal, the moose, followed the same route as humans from Siberia into Alaska. Since human bones have never been found in either region from this time period, the presence of large numbers of moose bones offers an opportunity to analyze the timing and ecological limits of these co-travellers. Sixty radiocarbon dates from northeastern Siberia, Alaska and the Yukon will provide an indirect indicator of the extent of the woodland environments and human/moose co-expansion into the New World.